Phase Equilibria Properties and Correlation of Fluid Mixtures

In this project, various apparatus are developed to make fast, state-of-the-art phase equilibrium measurements of CO2 + N2 and CO2 + C2 H6 systems. The goal is to collect thermodynamic data at a rate of one datum for every 30 minutes. Apparatus under development are: fast Burnett, hybrid Burnett-Isochoric, and direct weighing pycnometer. Pressure measurements range from 0-2,000 BAR with precision of 10-3%; temperatures range from 100-500 degrees K with precisions of 2x10-3 degrees K; densities are at the 3x10-2% level. Mixtures are constructed gravimetrically to point 0.001 mole fractions. The correlation development revolves around an equation of state which separates attractive and repulsive terms. Proper application of temperature dependence in the repulsive term provides significant advantages over perturbed hard body expressions.